Postdoctoral Fellowship: MSPRF: Next Generation Spatial Models for Discrete-valued, High-dimensional Data

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Brandon Carter is “Next Generation Spatial Models for Discrete-valued, High-dimensional Data”. The host institution for the fellowship is Duke University and the sponsoring scientist is David Dunson.